Nonlinear Compensation for Cost of Feedback Reduction in Highly Uncertain Systems

This research considers a fundamental control problem, the compensation of uncertain plants. The effect of sensor noise at the plant input is taken into account in the compensator design and is called the cost of feedback. Nonlinear compensation techniques are proposed for achieving desired feedback benefits with less cost than in conventional optimal linear time invariant design. The proposed techniques take into account most important factors occurring in real applications, i.e. plant uncertainty, sensor noise, and loop bandwith. Nonlinear compensation, though still in its infancy, is potentially a very powerful tool for control system design. The research being proposed holds the promise of providing nonlinear compensation techniques which would be extremely useful in designing real world control systems.